The Bipolar Fluxonic Transistor: Exploratory Development of a Novel Superconducting Device

Recent research has indicated that there is a formal electrical duality between electrons in semiconductors and fluxons in superconducting thin films. Magnetic flux can be transported across a superconductor only via fluxons (or vortices), in analogy to charge transport across a semiconductor via electrons and holes. A fluxon of either polarity is driven by a current and produces an electric field in the same way that an electron or hole is driven by an electric field and produces a current. Superconducting devices that are dual to unipolar semiconducting devices (such as the field-effect transistor) have recently been demonstrated. The proposed research will go further to design and fabricate simple bipolar fluxonic elements that are the duals to semiconducting bipolar junction diodes and transistors. A bipolar fluxonic transistor is a three-terminal active superconducting device that can exhibit substantial voltage gain. These devices will be prepared by patterning of high-temperature superconducting YBCO thin films, without the need to fabricate Josephson tunnel junctions or other more complex structures. The research will seek to determine whether these new devices may provide a promising new approach for the next generation of superconducting integrated circuit technology.